Gathering of a Community: Effectively teaching a broad student population and seeking support for geoscience programs at community colleges

This grant is providing travel support for 25 community college geoscience program faculty members to attend the 2011 Annual Meeting of the Geological Society of America (GSA), being held in Minneapolis, MN from October 9-12, 2011. Participants are attending two special events focused on 2-year and community college geoscience programs during the annual meeting: 1) a special technical session on "Geoscience for All - Strategies for Effectively Teaching a Broad Student Population - Lessons Learned from Two-Year Colleges and Other Open-Door and Diverse Institutions"; and, 2) a special pre-meeting short course focused on "Two-Year College Faculty: Possibilities, Challenges, and Successes".